The Role of Eya Genes in Early Mammalian Ear Morphogenesis

xu
0078246
Distinct organs in the body of human are formed by similar signals through
cell-cell communications. This proposal focuses on the genetic details
that tell cells to form the ear and where to form. The mammalian ear
formation involves a series of different signals from different adjacent
tissues. However, despite much speculation as to the signals from
neighboring tissues, the identity of the signals and how the cells
communicate with each other are not known. A gene called Eyes absent 1 has
been knocked out in mice. Mutations in the same gene in fruit flies cause
no eye formation. Interestingly, Eya1 mutant mice develop no ears and the
cells normally forming the ear die from very early embryonic stages,
indicating that Eya1 is a key early gene required for ear development.
This proposal will use Eya1- and other Eya-deficient mice to study how the
mammalian ears form in appropriate places in the body by molecular and
genetic approaches.
This project begins to dissect out the molecular and genetic
information required for normal formation of the mammalian ear. Thus, the
major significance of the proposed studies is that they represent one of
the first attempts to define specific gene function in the context of the
normal developmental mechanisms operating in ear formation.